U.S.- Italy Cooperative Research: ESR Investigation of Interactions of Nanoparticles of Dendrimers/Liposomes with Polymers and Surfactants

0091547
Somasundaran

This two-year award, which supports U.S.-Italy cooperative research on interactions of nanoparticles of dendrimers/liposomes with polymers and surfactants, involves Ponisseril Somasundaran of Columbia University and M.F. Ottaviani of the Institute of Chemical Sciences in Urbino, Italy. The objective of their research is to enable the use of electron spin resonance to monitor conformation of polymers and surfactants at interfaces.

The U. S. principal investigator brings to this collaboration his group's expertise in identifying the best conformation of polymers and proteins for determining the interactions between nanoparticles and dendrimers with surface active species. The US co-PI provides experience with applied supramolecular structure-function and structure-reactivity relationships toward understanding the behavior of adsorption at interfaces. This work is complemented by the Italian investigator's expertise in the use of electron spin resonance probes for examination of adsorption at interfaces. The results of this research are expected to contribute to knowledge of the behavior of vital industrial systems.